A Workshop on the Undergraduate Linear Algebra Curriculum

Mathematical Scientists are assessing the current state of linear algebra instruction in the undergraduate curriculum in U. S. colleges and universities, laying a foundation for its improvement, and identifying priorities for further and continuing study. This endeavor is being carried out by means of a survey of linear algebra curricula, a workshop at the College of William and Mary, and a conference at the 1991 Joint Mathematical Meetings. The institution is contributing an amount equal to the award.***//